Collaborative Research: Thermal Controls on Ecosystem Metabolism and Function: Scaling from Leaves to Canopies to Regions

Temperature exerts a primary environmental control on biological systems and processes at a range of scales in space and time. Its influence is fundamental, ranging from controls on the reaction rates of enzymes, ecosystem biogeochemical reactions, and large-scale distributions of plant and animal species. Temperature is also a fundamental characteristic of climate. Indeed, much of the concern about the impact of climate warming is motivated by the pervasive influence of temperature on organisms. Although most focus is usually on air temperature, the skin temperature of an organism, such as a plant, is actually more relevant in many cases. However, until now measurements of organismal temperature using thermal images taken from some distance away have been challenging because of sensor and computational limitations. This research project addresses this gap in understanding through three goals: (1) to assess the use of thermal imaging measurements for ecological and agricultural studies, such as monitoring the response of plant canopies to heat and drought stress; (2) to demonstrate the continuous deployment of robust thermal cameras for continuous canopy imaging for a range of ecosystems; and (3) to develop scaling algorithms to relate sparse measurements at individual canopy sites to the patterns observed at regional scales by sensors on aircraft and satellites. The work will combine temperature observations at a range of spatial resolutions with synthesis activities in an innovative manner. The results will enhance our understanding of how ecosystem structure and function are related to skin temperature patterns.

This project will introduce new technology and infrastructure for long-term thermal data collection that could have a large impact on our understanding of ecological functioning across multiple scales. It will combine the diverse interdisciplinary expertise of researchers at different stages in their careers in fields including plant physiology, remote sensing, biogeography, and statistics. Results will directly inform questions concerning the link between leaf temperatures and carbon assimilation by ecosystems and the response of natural and agricultural ecosystems to drought stress. It will address scaling of properties and processes related to temperature, as is required for predicting responses to climate change. Particular focus will be on the responses of ecosystems to drought and heat waves. More tangible outcomes will be advances in understanding of plant-temperature interactions in natural and managed ecosystems, as well as the establishment of canopy thermal imaging equipment at three long-term monitoring sites. Finally, this project will integrate research and teaching through the training of post-doctoral researchers, mentoring of undergraduate students, and development of laboratory modules based on the concepts and data generated by this project for undergraduate and graduate courses in geography, earth science, ecology, and environmental science.